An International Conference on Mathematical Analysis and Signal Processing; Cairo, Egypt; December 1993

Technical Narrative: This proposed conference, organized by the University of Central Florida and Cairo University, is scheduled for December 1993 in Cairo, Egypt. The purpose of the conference is to report on some of the latest developments in the areas of classical and applied analysis that relate to signal processing and wavelets. This combination of topics brings together expertise from many countries, especially some mathematicians with contacts and ties with Middle East. This proposal supports the participation of approximately 15 U.S. mathematicians. Conference participants will present papers that will be compiled and published as a conference volume. This conference in mathematical sciences fulfills the program objective of advancing scientific knowledge by enabling leading experts in the United States, Egypt and elsewhere to combine complementary talents and present research results in areas of strong mutual interest and competence. This conference has the potential for generating new scientific activity and new international linkages.